The Sensor Networks Education Project (SNEP)

Engineering - Engineering Technology (58)

The Sensor Networks Education Project (SNEP) is a two-year, interdisciplinary engineering project that is seeking to improve STEM related undergraduate education through: the creation of original, interactive simulations and case-study and problem-based learning materials and the development of faculty expertise in both the utilization of these student-centered teaching strategies and methodologies and the emerging field of networked sensor technology. The achievement of these goals is being facilitated through the implementation of an innovative teaching and learning laboratory for networked sensor systems that is allowing for direct interaction with conventional field-deployed sensor systems. Dissemination is taking place locally, regionally, and nationally through the distribution of the developed educational materials to two- and four-year college and university faculty that offer technology programs via faculty workshops, on-line methods (NSDL), and presentations at conferences and workshops.